Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1997

Abstract DBI 9750211 Catharina Casper-Lindley This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1997. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled "Physiological and molecular analysis of photodamage accompanying photosynthesis." Light fuels photosynthetic carbon dioxide fixation but also damages a protein crucial to photosynthesis. This project examines the natural rates of damage and repair of D1, the main target protein of photodamage; the composition of the degradation complex after photodamage; and the proteins and respective genes involved in the damage/repair cycle of D1, using mutants of Chlamydomonas and barley.